Shipboard Sceintific Support Equipment - 2008

ABSTRACT

05 June 2008
Proposal Number: 0813803
Institution: Woods Hole Oceanographic Institution
PI: A. Suchy

The proposal requests five Shipboard Scientific Support items for Woods Hole as well as other vessels in the academic fleet; namely one (1) PHINS inertial navigation system for the R/V ATLANTIS, a group purchase of nine (9) Fleet-77 Broadband satellite communications systems, modifications to supply raw sea water for van HVAC on the R/V ATLANTIS, design of similar van services for the R/V KNORR, a “pooled” liquid nitrogen generator primarily for the R/V KNORR, but also for other vessels in the academic fleet as needed. All items will either enhance safety or provide greatly improved support capabilities to science.

Broader Impacts: Woods Hole vessels support federally funded scientific research throughout the world’s oceans and routinely expose graduate and undergraduate students to seagoing oceanography. All told, The KNORR, ATLANTIS, and OCEANUS will complete 36 NSF sponsored cruises in 2008.